Adaptive Bio-Control of Artificial Pneumatic Muscle Elbow: Nonlinear Model

9707334 Fashoro This research focuses on the modeling of a pneumatic actuator that has characteristics more similar to human muscle than standard electric or hydraulic actuators. This involves the development of non-linear adaptive joint motion control strategies for an artificial elbow joint driven with artificial muscle actuators arranged in antagonistic pairs. There are two major tasks proposed for this research: (1) the building of a one-link physical model and the derivation of the dynamic equations for the fine motion of the elbow joint, and (2) the incorporation of a non-linear dynamic/static artificial muscle model into the dynamic equations of the fine motion of the artificial elbow. This device could have use in prostheses, orthotes, robot arms and surgical hands. ***